Design Principles for Wideband Wireless Communications

Abstract

Broadband wireless communications has been identified as a national
imperative; it is deemed essential for maintaining the country's
premier position in information technology and accelerating the
advance of the information age. This research is aimed at enhancing
the performance of wideband wireless multiaccess systems by optimizing
tradeoffs between coding and spreading, capitalizing on advantages
afforded by spatial diversity, and developing techniques for
accommodating multirate users.

A goal of this research is to establish, through a careful modeling of
time dispersion and angular dispersion effects in wideband channels,
that signals spread continuously over the available time interval and
frequency band can send data with high reliability. When spatial
macrodiversity also is available, the investigators contend that
signals should be coded over spatial and spectral dimensions and their
energy spread "continuously" over time, frequency and space.

Linear signal space separation schemes have received considerable
attention as approaches for providing good tradeoffs
between throughput and system complexity in single-cell multiuser
environments. The efficacy of linear signal space separation schemes
diminishes substantially, however, when one generalizes to
multiple-cell environments. The goal in such realistic multicell
interference channels is to maximize a certain extension of classical
spectral efficiency herein called area-spectral efficiency. This research
investigates the validity of the contention that signals widely
dispersed in time, frequency and space (TFS-wide signals) are nearly
optimum in such environments and do not require the use of linear
signal separation at the receiver.

The investigators study various techniques for creating
TFS-wide signals in the wideband wireless environment, with an
emphasis on multicarrier signaling approaches. Provided the
forward channel does not fade quickly relative to the capacity of the
channel available for feeding back information from the receiver(s) to
the transmitter(s), DMT (discrete multitone) with dynamic bit loading
should prove to be a viable data transmission technique. Combined
with spreading that enables multiple access, DMT can be made to
provide both user separation and Shannon-optimal power distribution
relative to the short-term spectrum of the wideband channel with
fading and interference seen by each user. For cases where dynamic bit
loading proves infeasible, OFDM (i.e., DMT with an equal number of
bits in each subchannel) is being explored as a candidate modulation
scheme for broadband wireless signaling.